Building Opportunities for Nurturing Aspiring STEM Teachers

This Noyce Track 1 project aims to serve the national need for highly qualified middle and high school STEM teachers in rural, high-need schools. Additionally, this project will support 18 high-achieving undergraduate STEM majors in biology, chemistry, mathematics, physics, and computer science by providing two years of scholarships and co-curricular support, including mentorship from current teachers from rural high-need K-12 schools. The proposed project components will enable high-achieving prospective teachers to become secondary STEM educators with strong disciplinary knowledge and effective, evidence-based teaching practices tailored to rural educational settings.

This project at St. Bonaventure University includes partnerships with Jamestown Community College and five high-need local educational agencies: Salamanca City Schools, Cuba-Rushford Central, Genesee Valley Central, Olean City and Portville Central. Project goals include providing rural school districts in southwestern New York with highly qualified STEM teachers by recruiting more STEM majors to careers in secondary STEM education and to reduce attrition by maximizing the career satisfaction and effectiveness of these new STEM teachers. The objectives over the five-year grant period are to: (1) recruit and select 18 undergraduate students majoring in biology, chemistry, mathematics, physics, and computer science who are interested in secondary education over five years; (2) retain at least 90% of selected scholars through completion of the STEM degree and secondary teaching certification; (3) prepare scholars to teach in high-need schools through curricular and co-curricular activities that emphasize place-based learning, student-centered instructional practices for varied classroom contexts, and hands-on research experience, ensuring effective teaching practices for all STEM learners; and (4) place 100% of project graduates in high-need schools and track and support their persistence for at least four years of teaching through structured mentorship programs. Intellectual merit will include generation of knowledge related to the impacts of curricular innovations and co-curricular activities. This project will be iteratively evaluated. Evaluation of the project by an independent evaluator will be guided by the following evaluation questions: (a) To what extent have the project’s aims and intended outcomes been accomplished?; (b) What project elements most impact scholar retention as a new teacher in a high-need school?; and (c) What was the impact of the project in placing and retaining graduates in high-need schools? The results of this project will be disseminated to help enhance the field. Broader impacts include having new STEM expertise in rural schools and the ability to prepare students with high potential to pursue STEM teaching in rural New York. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.